Instrumentation Enhancement for Science, Technology, and Communications

Columbia College Chicago has a significant tradition of training future communications professionals, including a substantial proportion of women and minority students. The Science and Mathematics Department incorporates this tradition into the chemistry curriculum by offering courses which examine the impact of chemistry on areas of social concern like the environment, drugs and drug testing, and consumer product quality Results of student research projects in these and other areas are integrated with the students' communications specialties through the presentation of reports such as videotapes, films, artwork and other creative presentations. Student projects have appeared on local cable television, and have been presented nationally and internationally at numerous science museums, science centers, conferences, symposia and special lectures. Laboratory experience, which is a strong emphasis throughout the curriculum, features numerous applications of analytical technique, including gas chromatography. The acquisition of the high pressure liquid chromatograph through this project expanded the analytical methods component of the institution's laboratory program as a logical extension of their chromatography capability. The Atomic Absorption Spectrometer permitted analysis of metals in a variety of settings. The instrumentation allowed students to investigate and report on a wide variety of realistic problems in the application of chemistry to the concerns and needs of society. The institution contributed to the project in an amount equal to the NSF funds.